Automated Morphometry of Dendritic Spines

Lindquist
0107893
The investigator creates quantitative computational tools
for the automated analysis of neural images, including software
algorithms to provide automated morphology measurements both of
neuron dendrites and of dendritic spines (the primary synaptic
receivers). These tools are developed in close collaboration
with the neural imaging research programs of two groups, led by
Prof. K. Svoboda at Cold Spring Harbor Lab. and by Profs. P. Hof
and S. Wearne at Mt. Sinai School of Medicine. In preliminary
work, automated algorithms have been developed and verified
(against manual measurements) to identify and extract
morphological measurements of dendritic spine length and density
from 3D images. This project develops algorithms to
i) provide spine volume measurements, which are currently
available only through manually intensive, scanning electron
microscopy measurements;
ii) analyze (two-channel) images containing two dyes that
fluoresce at different frequencies. One dye is a marker for
spine morphology, the second is a marker for specific
functionality. This allows for direct correlation studies of
form and function. The primary application of these algorithms
is in structural genetics work.
iii) determine higher moment (shape) measures both of spines
and dendrite cross sections. The primary application of these
algorithms is in developing models of neural integration behavior
and age-related deficits in short-term memory.
Biological science technologies are now capable of producing
data at a rate so fast that only with computers and sophisticated
numerical and statistical algorithms can biologists analyze these
data. In the past decade, laser scanning fluorescence
microscopy, enabling non-invasive, three dimensional imaging of
living neurons, has produced a revolution in neural research.
The wealth of information available from a time sequence of three
dimensional neuron images is outstripping our current information
processing capacity, which has been based upon manual
identification and tracing of structures of interest. Although
it uses the superb recognition capability of human sight, manual
measurement is tedious, susceptible to systematic and hard to
characterize human biases, restricted to measurements involving
only length and counting, and effective only for small data sets.
The purpose of this project is to develop computer based tools
for the automated analysis of neuron images, eliminating manual
analysis. The resultant computer tools will make practical such
studies as
i) the relationship between neuron structure and age-related
deficits in memory as well as some forms of mental retardation;
ii) where in neurons certain proteins concentrate and how
their presence and concentration correlates to the signal
processing role of neurons;
iii) large scale screening of drug treatments designed to
correct genetic- or trauma-induced deficiencies in neuron
structure.
The project is supported by the DMS/Computational Mathematics,
DMS/Applied Mathematics, and IBN/Computational Neuroscience
programs and by the MPS/Office of Multidisciplinary Activities.